Collaborative Research. Crustal Reworking During Orogency: An Active-System Himalayan Perspective

9418154 Chamberlain This project is part of a multidisciplinary study of the Nanga Parbat-Haramosh Massif of the northwestern Himalaya, Pakistan. The Principal Investigators wish to assess the recent and still-active processes responsible for an extraordinary episode of very young high-grade metamorphism, partial melting, high strain, and rapid denudation focused around the center of Nanga Parbat. Their ultimate goal is to exploit the excellent exposures and access to active tectonic processes offered by Nanga Parbat to understand the mesoscale interaction between petrological and mechanical processes during collisional orogenesis. To accomplish these goals they propose to integrate a wide variety of measurements made using techniques of geochronology, petrology, stable-isotope geochemistry, radiogenic tracer-isotope geochemistry, seismology, magnetotelluric sounding, structural geology, and geomorphology, and then place their results into a geodynamic context. ***